Participation in the Charm 07 Workshop by Young Physicists and Physicists from the Peoples' Republic of China

The CHARM 2007 Workshop will be held at Cornell University in August 2007. The meeting will focus on recent experimental and theoretical developments in charm quark and charm meson physics. Presentations will include recent experimental results from BES, CLEO-c, the B-Factories and SELEX, theory, and considerations of the capabilities of future facilities for charm and beauty physics, including BESIII, Panda, LHC-b and potential super-B-Factories. This award will provide support for young US scientists to attend the workshop.